Representation Theory and Spaces of Polynomials

E. Mukhin plans to continue his studies of the Algebraic Bethe Ansatz
method in the relation to the non-homogeneous Gaudin, XXX, XXY and
other models. The main problems to be addressed are: develop an
approach to the Algebraic Bethe Ansatz based on populations of
solutions of Bethe Ansatz equations; use the populations to solve the
Bethe Ansatz equations explicitly; use populations to study the number
of solutions of the Bethe Ansatz equations; prove the (modified) Bethe
Ansatz Conjecture which claims that the Bethe vectors form a basis in
the space of states for generic values of parameters, in the case of
sl(N).

Diagonalization of Hamiltonians of many models of mathematical physics
can be performed if the corresponding system of algebraic equations
called Bethe Ansatz equations is solved. It was shown that the
solutions of the Bethe Ansatz equations naturally form families which
are called populations. In the case of the Gaudin model associated to
sl(N), the populations are in one-to-one correspondence with the
points of intersection of appropriate Schubert cycles and with the
scalar differential operators of order N which have only polynomial
solutions. Thus the sl(N) populations are given by N-dimesnional
spaces of polynomials in one variable with prescribed singular points and
exponents. E. Mukhin hopes that the study of the spaces of
polynomials can make the Bethe Ansatz approach more tractable and resolve
several old problems in this area.